SST: Exploring the World with a Ray of Light: An Environmental Sensor for the Blind

0529435
Manduchi
This proposal is focused on developing an economical and miniaturized range sensor to serve as a device to aid mobility of the visually impaired. The sensors will be capable of acquiring accurate measurements at a high rate to enable the real-time analysis of range data. The device will focus on detecting gradient-based features of interest such as stairs, curbs, etc., and the results will be transmitted to the individual in an acoustic or haptic manner. The device will be tested and assessed by actual disabled individuals to provide targeted feedback. The PI will also utilize the undergraduate design course that incorporates the concepts in instrumentation involved in the proposed work. The research will allow students to come away with an appreciation for the abilities and skills needed to navigate without the benefit of sight.